Acquisition of a CCD-Based X-ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will help the Department of Chemistry at Iowa State University acquire a CCD-based x-ray diffractometer. The equipment will enhance research in a number of areas which include programs in inorganic, organic, organometallic, solid state, and polymer chemistry. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.